PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research fellowship awarded to Melody Chan is "Tropical curves and determinantal varieties." The host institution for the fellowship is Harvard University, and the sponsoring scientist is Dr. Joseph Harris.